ITR/IM: Capturing, Coordinating and Remembering Human Experience

This work will develop algorithms and systems enabling people
to query and communicate a synthesized record of
human experiences derived from individual perspectives captured
during selected personal and group activities. For this research,
an experience is defined through what you see, what you hear,
where you are, and associated sensor data and electronic communications.
The research will transform this record into a meaningful, accessible
information resource, available contemporaneously and retrospectively.
We will validate our vision with two societally relevant applications:
(1) providing memory aids as a personal prosthetic or behavioral
monitor for the elderly; and (2) coordinating emergency response
activity in disaster scenarios.

This project assumes that within ten years technology will be capable
of creating a continuously recorded, digital, high fidelity record of
a person's activities and observations in video form. This research
will prototype personal experience capture units to record audio, video,
location and sensory data, and electronic communications. Each constituent
unit captures, manages, secures and associates information from
its unique point of view. Each operates as a portable, interoperable,
information system, allowing search and retrieval by both its
human operator and remote collaborating systems. An individual
cannot see everything, nor remember everything that was seen or
heard. The integration of multiple points of view provides more
comprehensive coverage of an event, especially when coupled with support
for vastly improving the memory from each perspective. The research thus
enables the following technological advances:

* Enhanced memory for individuals from an intelligent assistant using an
automatically analyzed and fully indexed archive of captured personal
experiences.

* Coordination of distributed group activity, such as management of an
emergency response team in a disaster relief situation, utilizing multiple
synchronized streams of incoming observation data to construct a "collective
experience."

* Expertise synthesized across individuals and maintained over generations,
retrieved and summarized on demand to enable example-based training and
retrospective analysis.

* Understanding of privacy, security and other societal implications of
ubiquitous experience collection.

The foundation for this work, the Informedia Digital Video Library,
has demonstrated the successful application of speech, image, and
natural language processing in automatically creating a rich, indexed,
searchable multimedia information resource for broadcast-quality video.
The proposed work builds from these technologies, moving well beyond
a digital video library into new information spaces composed of
unedited personal experience video augmented with additional sensory
and position data. Tools will be created to analyze large amounts
of continuously captured digital experience data in order to extract
salient features, describe scenes and characterize events. The
research will address summarization and collaboration of multiple
simultaneous experiences integrated across time, space and people.